Computing Undergraduates Scholarship Program (CUSP)

The Rochester Institute of Technology's Computing Undergraduates Scholarship Program (CUSP) Project is awarding scholarships to students pursuing degree programs in Computer Science, Information Technology, Network, Security and Systems Administration, and Software Engineering who demonstrate both academic potential and financial need. Special emphasis is being given to recruiting from underrepresented groups including women. Scholars are participating in a co-operative education experience which is providing them opportunities to gain work experience at local, regional and national companies. This project is making an impact in undergraduate Computing education in the region.